RUI: Recognition of 3-D Objects Via Structured Light and Analysis of Color Textures

This is an RUI Research Instrumentation project. Funds are provided to purchase equipment for research in computer vision. This equipment includes a color camera, a projector, a framegrabber, a file server, and two workstations, along with the necessary ethernet connections. Three specific projects will be supported by this equipment: 1) analysis of 2-D striped images to obtain 3-D information, 2) exploration of techniques to integrate information extracted from multiple sources, and 3) combination of results from color analysis techniques with model based texture analysis methods.